Acquisition of a Raman Spectrometer for Protein Structural Analysis

9413527 Przybycien The Raman Spectrometer is to be dedicated to support research in biotechnology. In particular, the spectrometer is to be use for the structural characterization of protein samples obtained from bioprocessing environments. The primary mode of operation will be conventional spectral acquisition for protein structural estimation as well as more fundamental research into the use of low-frequency Raman spectra for more refined estimates of protein structure. the spectrometer is to support research projects in the chemical engineering, chemistry, and physics departments at Rensselaer as well as faculty at Princeton University and the University of Texas at Austin. ***